Presidential Young Investigator Award: Computer-Aided Design Interpolation Systems

The goal of this research is to develop a computer-aided design system that can create hybrids of existing designs, or stated more accurately, can interpolate between existing designs. We see evidence of interpolation in many designed artifacts. "Mountain bikes," for example, result from an interpolation of off-road motorcycles and standard road bicycles. While still fundamentally a bicycle, motorcycle features like raised handlebars and knobby tires dramatically alter the functionality. Pedal-assisted mopeds, on the other hand, are more toward the motorcycle end of the spectrum. To create a CAD system with such capabilities, the interpolation operations will be formalized, a sufficiently limited experimental design domain will be chosen, adequate representations that facilitate the operations will be determined, and a system implementation will be developed.